Financial Support for the llth Annual Symposium in Plant Physiology, January 14-16, 1988; Riverside, CA

The Department of Botany and Plant Sciences, University of California, Riverside, has held a symposium the past ten years on timely topics in plant physiology. This year (January 14-16, 1988), it will be entitled, "Physiology and Biochemistry of Plant Microbial Interactions," organized by Professors Noel T. Keen, Linda L. Walling, and Tsune Kosuge (UC Davis). The objective is to bring together scientists working in this area plus interested individuals, with the hope that discussion and presentations on this topic will lead to increased understandings of plant microbe interactions. In addition, speakers, especially young investigators, from abroad and other institutions in the United States will be invited. The symposium's papers will be published rapidly and inexpensively, as previously done.***//